A Laboratory Curriculum for Physical Anthropology on CD ROM

9354427 Kappelman This project expands and extends the reach of physical anthropology by developing a first and second year curriculum for use at other institutions nationally. The laboratories build on current course offerings and provide materials mastered by undergraduates as stand alone modules on CD ROM. These electronic laboratories permit students to work on specific problems using high resolution color images, video clips, 3-dimensional animations, and sound. It is also expected that the CD ROM will provide these materials in an easily affordable instructional medium.